Environmentally Conscious Manufacturing of Large Area Electroluminescent Displays and Illuminators

9528731 Papadimitrakopoulos Recent manufacturing breakthroughs in lightweight, low-power light sources made at E-Lite Technologies, Inc., using polymer encapsulated ZnS:Cu/Mn phosphor materials, gave substantially improved their flexibility and allowed a cost-efficient coil-form production. Based on similar phosphor (ZnS), employing a more rigorous all-inorganic ZnS-based approach, multi-color electroluminescent (EL) flat panel displays are being manufactured at Westinghouse-Norden Systems. This proposal seeks to develop an environmentally conscious, solvent-free processing of large area ZnS:Cu/ electroluminescent illuminators. The present technology employs 85 weight % solvent (a mixture of methyl ethyl ketone and N-methyl pyrrolidone) to disperse the active EL ingredients and the polymeric binders. Subsequent evaporation of the solvents poses environmental difficulties. The proposed process would be based on 100% photopolymerizable monomers along with electrostatic phosphor deposition. This would allow the manufacture of high quality EL films without the requirements of any solvent. In addition, we propose to enhance light out-coupling efficiency (with 50-100% increase in brightness) as a result of "medium-transparent" EL particles. This novel process would involve matching the refractive indices of the EL ZnS:Cu/Mn particles with that of the binder polymer matrix. The refractive index of the polymer matrix would be substantially increased by incorporation of nano- sized high refractive index, non-emitting inorganic nanoparticles, such as GaP and A1GaP. The entire procedure can be applied by a supercritical CO2 process, followed by ultra- violet curing. The proposed process would not only increase the brightness and lifetime of EL lamps, but it would also allow pixelation to realize flat-panel displays. This will enhance the competitiveness of thin-film EL against upcoming competing technologies, such as organic EL. In addition, the novel, environmentally friendly and cost effective processing techniques and high efficiency structures would provide the technological edge to compete in the large display market that is forecasted to grow over two hundred billion dollars during the next five years. The background of principal investigators at UConn, E-Lite Technologies Inc. and Westinghouse Norden Systems, as well as the availability of complementary research laboratories and production facilities makes the proposed research a natural collaborative endeavor. ***